First International Workshop on Cyber Physical Systems --- In Conjunction with ICDCS'08

This award provides NSF support for a workshop on the topic of Cyber-Physical Systems (the First International Workshop on CPS) to be held in June of 2008 in Beijing, in conjunction with the IEEE International Conference on Distributed Computing Systems. The aims of the workshop are to provide a forum for a new NSF program area addressing next-generation physical and engineered systems.